Recent Progress in String Theory 96; University of California, Santa Barbara

An international conference on string theory, which pictures the elementary particles as the excited states of extremely tiny strings and attempts to unify all the forces of nature, will be held at the University of California at Santa Barbara July 15-20, 1996. String theory is currently a particularly active and promising area of theoretical physics, due to recent developments such as `duality` relations which state that theories previously thought to be unrelated alternative descriptions of nature are actually equivalent theories. The conference in Santa Barbara will bring together some of the leading workers in the field to engage in a very important exchange of ideas.